Improving Academic Preparation of Lower Division Students through Curriculum and Lab Improvements and Research Interships

Biological Sciences (61) This project dovetails laboratory experiences that develop students' inquiry/research skills through concepts depending on spectrophotometric skills with a focus on the structure and functioning of proteins and nucleic acids into laboratory learning experiences. Objectives are focused on results such as increased academic performance, increased enrollment and completion rates, and increased student interest in molecular biology-related upper division study and careers, with the outcome of disseminating information internally and externally regarding the effectiveness of the revised practices to maximize project impact. Processes developed by Virginia Hartman have been adapted to guide development and implementation of the courses and modules.